RIMI: Imaging Center for Neurobiology

9353130 Zuazaga The proposal requests funds to establish an Imaging Center for the Institute of Neurobiology. Four instruments to perform major cell image analysis or tissue processing are requested: 1) a photometry/microscope system for quantitative fluorescence analysis, 2) a confocal microscope, 3) a ultramicrotome for serial sectioning, and 4) a three-dimensional reconstruction and morphometry system. The equipment will expand capabilities of eight research projects involving ten of the Institute's resident investigators, four of them Hispanic women, their students, and collaborators from mainland institutions. The development of cell imaging research will not only enhance current research at the Institute but will also further involve minority students in state- of-the-art neurobiological research. ***